Organization of the Topical Meeting on Nonlinear Dynamics inOptical Systems

This grant supports Organization of the International Topical Meeting on Nonlinear Dynamics in Optical Systems, in Afton, Oklahoma, June 4-8, 1990. The meeting will provide a Gordon-style conference on dynamical aspects of nonlinear optical systems for researchers principally in the fields of laser physics and quantum electronics. The workshop will focus on the physics underlying nonlinear optical systems such as in optical bistability, phase conjugation, multiwave mixing, optical fibers and waveguides, microscopic quantum systems including optically trapped atoms and ions, etc. Invited speakers will represent many allied fields in which nonlinear dynamical phenomena are of considerable current interest, with the attempt to improve the unification and exchange of information among disciplines in this area. NSF funds will be specifically targeted to provide partial travel support for special lecturers in related fields and for young faculty, postdoctoral associates and graduate students.